A Workstation Environment in a Computer Engineering Laboratory

The proposed project has two primary goals: first, to upgrade current laboratory facilities in the Electrical Engineering Department used in computer engineering courses; second, to develop a prototype of the ideal laboratory environment for courses in the computer engineering area. Currently-used obsolete single-board computers will be replaced by modern microcomputer development/prototyping systems. These systems will be supported by engineering workstations for software development support and hardware debugging support. The workstations will be networked to file server for centralized storage and input/output sources. This networked workstation environment, communicating directly with hardware development systems and laboratory instrumentation, will provide a state-of-the-art capability resulting in an enhanced laboratory experience for students in computer engineering courses.